The Use of Dynamical-Systems Concepts in the Study of Weather and Climate

9318422 Lorenz The PI will investigate various aspects of atmospheric predictability and climate determinism, using concepts from the theory of dynamical systems. He will base these studies on numerical integrations of relatively low-order mathematical models. These will permit the use of large ensembles. The procedures can then be transferred to larger models, presumably with smaller ensembles, if this proves desirable. The PI will also continue to seek the true significance of the very low dimensionalities for the atmosphere or the climate system (obtained by processing sequences of observations of a single variable) that have been appearing in the recent literature. This research is important because it will provide a fundamental base of knowledge upon which climate prediction models will be developed. ***